Attenuation and Melt Migration in Silicate Partial Melts

An experimental investigation of attenuation and deformation- induced melt migration in texturally equilibrated silicate partial melts will be carried out. The experiments analyses will concentrate (i) on directly measuring the attenuation response in model partial melts that is uniquely attributable to stress-induced motion of the melt and (ii) on measuring the materials properties (i.e., matrix viscosities, melt viscosity, melt permeability) required for geodynamical models of melt migration. The key to these measurements is the use of flexural loading, which creates an analytically determinant stress gradient within a specimen.